Postdoctoral Research Fellowship in Chemistry

Dr. Luke Hanley has been recommended for a Postdoctoral Fellowship in Chemistry Award. Dr. Hanley's doctoral degree was from the State University of New York at Stony Brook under the supervision of Professor Scott L. Anderson. He intends to continue his research at the University of Pittsburgh under the sponsorship of Professor John T. Yates, Jr. Dr. Hanley's area of Postdoctoral Research will be Probing bonding of adsorbates to Ni (III) by vibrational spectroscopies: CO, with B2H6, and B5H9 under electron impact.